Interpretation and Dissemination of Phase I and II Test Results for the U.S.-Japan Full Scale Test Structure (Steel)

The Phase I and II tests of the full-scale steel structure of the U.S.-Japan Cooperative Research Program were recently completed. Interpretation and analysis of the Phase I test results are now in progress in Japan. Japanese researchers will not be performing significant analysis of the test results for Phase II, and the emphasis of the analysis of the Phase I analysis may not be suitable for U.S. practitioners, because U.S. and Japanese practices are quite different. The Phase I and Phase II test results are analyzed from a U.S. perspective; these results are correlated to U.S. practice and appropriate recommendations are developed for seismic design as well as future research; and these results are disseminated to the practicing profession. An interim report is prepared within 6 months of the start of this study to quickly disseminate general test results and conclusions. A more detailed final report is prepared at the end of 24 months.